International Methods of Logic in Mathematics Research Group

Abstract

Award: DMS-0432603
Principal Investigator: Andreas R. Blass, Edward Griffor

A series of three yearly meetings will bring together U.S.,
Russian, and other logicians and set theorists to present
progress and new problems connecting logic to several other areas
of mathematics. The first meeting, in 2004, concerns Logic,
Algebra and Geometry; the second, in 2005, addresses
Computability and Models of Arithmetic; and the 2006 session will
be on The Modern Impact of Set Theory.

Logic and set theory concern mathematical investigations of the
most fundamental notions of mathematics, such as: What are the
rules of inference? What are the objects to which we apply them?
How does changing this axiomatic background alter the resulting
conclusions? Theories that result from systematic investigation
of these concerns near the roots of mathematics can have
applications much farther up the developmental ladder, for
example by providing estimates of the number of solutions to a
system of algebraic equations or by developing a notion of
complexity that can show that different dynamical systems are
similar or genuinely distinct. Each of these meetings will be
held in Russia, at the Euler International Mathematical Institute
of the Steklov Mathematical Institute of the Russian Academy of
Sciences in St. Petersburg. This is a joint award of the Office
of International Science and Engineering's Central and Eastern
Europe Program and the Division of Mathematical Sciences program
in Foundations.